STIMULATE: Human-Computer Communication and Collaboration

The proposed research aims to provide the scientific and technological base for a new paradigm for human-computer interaction, one that enables the principled design of multi- modal dialogue-supporting interfaces. Two strands of previous research support this effort: research towards building novel, collaborative interfaces for automated graphic design and the development of explicit theories of collaboration. The proposed research addresses a key missing element of prior research, an understanding of how theory can be integrated with practice, so that a theoretical understanding of collaborative activity can inform in a principled manner the design of concrete software interfaces. The research comprises three activities: specialization of the general theory of collaboration to provide a framework for the design of collaborative interfaces; application of the theory to human-computer interface design leading to a set of design principles enabling system designers to construct software elements that communicate well in multiple modalities; and implementation of specific collaborative interfaces in a range of domains. The proposed research will contribute to fundamental research in communication, to the development of collaborative human-computer interface systems, and to training of undergraduates, graduate students, and post- doctoral fellows for work in multi-modal communication.